Automated Manufacturing and Robotic Laboratory

A CIM laboratory is being developed to provide curricular support on two levels of instruction: (1) exposure to the principles involved in the overall CIM operation, and (2) instruction in robotics. Utilizing an expandable manufacturing assembly and two robots, a CIM system operation is being developed. This project is being matched by an amount equal to the award.